Vertebrate Paleontology Collection Improvements at the Florida Museum of Natural History

9318715 Macdadden Fossil mammal specimens from Bolivia (about 40 plaster jackets) will be prepared, and they, and other Bolivian materials (approximately 6,000 specimens), will be made available to the research community. This work will provide much needed material to study the InterAmerican Interchange.